Interface Magnetism and Structure

This research project, supported jointly by the Analytical and Surface Chemistry Program of the Chemistry Division and the Solid State Chemistry Program of the Division of Materials Research, addresses key questions of geometric and electronic structure of magnetic surfaces and interfaces. Professor Klebanoff will develop and apply methods of spin resolved X-ray photoelectron spectroscopy, photoelectron diffraction, and surface extended electron loss fine structure spectroscopy to characterize the magnetic properties of thin films of magnetically active elements deposited on well characterized single crystal metal substrates. Initial work will concentrate on the interfacial magnetic properties of Cr layers deposited on the Fe(100) surface, and will be extended to other ferromagnetic systems including Fe, Co, Ni, and Gd. %%% An understanding of the magnetic and structural properties of the surfaces and interfaces of magnetically active materials is of tremendous importance to the magnetic recording industry and to the design and manufacture of magnetically active electronic components. This research program will develop powerful new methods for the characterization of the magnetic structure of thin layers of magnetically active materials, and apply them to the study of model systems. Information obtained from these studies will provide data crucial to the design and understanding of magnetic surfaces and interfaces.